Performance of Three-Dimensional Slope Stability Methods

9300043 Stark The work will validate three dimensional (3 D) slope stability analyses by using field case histories. The purpose is to evaluate the accuracy and applicability of existing 3 D slope stability methods to field conditions; to improve the understanding of the parameters and assumptions that affect the 3 D back calculated shear strength parameters; and to develop a new 3 D slope stability method. The results from the project will improve the understanding of the slope destabilization process and will have direct benefits on safety design and slope failure avoidance. ***